SlowLife: A Traveling Exhibit of Plant Science and Art

Slowlife is a traveling multi-media science/art educational exhibit that
will include video, live plants, photographic prints, and interactive
environments. The exhibit was originally designed by plant biologist Dr.
Roger Hangarter in collaboration with artist, Dennis Dehart. Built on
core series time-lapse movies, the exhibit will attempt to convey to a
public audience that plants are complex living beings instead of
ornamental inanimate objects. By combining time-lapse movies with
artistic elements that demonstrate various plant movements and growth
responses, the exhibit accurately and effectively combines science and
art in a way that provides scientists and non-scientists with a novel
way of learning some basic plant biology. The exhibit lets viewers
experience a sense of intrigue, mystery, and a bit of awe, all of which
contribute to enhancing their awareness of plant life. The experience
also provides viewers with an opportunity to reflect on their
relationship to plants and their environment. The original exhibit had a
debut installation at the Indiana University School of Fine Arts
Gallery. The traveling exhibit being built through this award is
scheduled to open at the U.S. Botanic Garden Conservatory on the
National Mall in Washington DC in October, 2005. Following that
installation, it will be shown at the Chicago Botanic Garden in June,
2006. During the two installations in Washington, DC and Chicago, it is
estimated that 900,000 people will see the exhibit. It will travel the
country for the following 5 to 7 years.